Curriculum Development of Laboratory Courses through Atomic Absorption Spectrophotometry

The community college offers the first two years of science and engineering curriculum heavily relying on traditional methods of analysis and theory. Most modern laboratories rely on sophisticated instrumental analysis. Therefore with the acquistion of an Atomic Absorption Spectrophotometer the students are being better equipped to enter their junior year in a senior institution with skills that are demanded for proficiency in their career. This project is providing lower level students access to the actual "hands on" instrumental analysis and solution preparation. In addition they are gaining experience in the assessment of the quality of laboratory generated data which will assist with developing problem solving skills required in any life situation. The grantee is matching the award from non-Federal sources.